I-Corps: Translation potential of an artificial intelligence (AI) system designed to automate sleep stage scoring

This I-Corps project is based on the development of technology to interpret sleep study recordings of a patient’s body functions while they sleep. Currently, this is a major challenge in sleep medicine as this relies on manual review of the study recordings. Sleep disorders affect large segments of the population and are linked to serious health conditions, including cardiovascular disease, cognitive decline, and metabolic disorders. Diagnosing these disorders depends on overnight sleep studies and scoring them requires trained technologists who manually review recordings of brain waves, eye movements, heart rate, breathing, oxygen levels, and muscle activity for extended periods. This technology is designed to automate sleep stage scoring during overnight monitoring and integrating with existing clinical workflows, which has the potential to reduce diagnostic bottlenecks, increase patient throughput, and improve access to sleep medicine services.

This I-Corps project utilizes experiential learning coupled with a first-hand investigation of the industry ecosystem to assess the translation potential of a system to automatically process polysomnography recordings. It uses transformer-based deep learning for biomedical time series analysis. Existing automated scoring systems require a fixed set of signals. This technology can accommodate a flexible number of input channels, and supports use across laboratories that employ diverse monitoring equipment. Early studies indicate that the model can be trained on datasets with varying channel configurations while maintaining accuracy comparable to that of single dataset models and demonstrating improved robustness. This innovation may provide a software tool that supports clinical sleep diagnostics and emerging applications in telehealth and home based sleep testing.